Research Experiences for Undergraduates in Chemistry at the University of Southern California

Professor Curt Wittig and other members of the Chemistry Department of the University of Southern California are being supported to conduct a Research Experiences for Undergraduates (REU) site in Chemistry. For the period 1990-92, ten (10) undergraduate students will spend ten (10) weeks each summer actively engaged in a variety of research projects. Projects range from electrochemical characterization of coordination complexes to computer simulations of the dynamics and functions of biological macromolecules. Students will attend weekly group meetings and make an oral presentation on their work at the end of the program.